CAREER: Exo-Core: An Architecture to Detect Malware as Computational Anomalies

Applications that run on billions of mobile devices backed by enormous
datacenters hold the promise of personal, always-on healthcare; of intelligent
vehicles and homes; and thus of a healthier, more efficient society. It is
imperative to make such applications secure by protecting their integrity and
keeping their data confidential. However, malicious programs (``malware'')
today can subvert the best software-level defenses by impersonating benign
processes on mobile devices or by attacking victim processes through the
hardware on shared datacenter servers. Grappling with such intelligent malware
requires fundamental advances in the hardware-software organization of computer
systems.

The key observation behind the research project here is that, while seemingly
disparate, intelligent malware relies on hiding its hardware-level behaviors
from operating system-level monitors. By exposing instruction-level and
micro-architectural behaviors to software analysis, the proposed Exo-core
architecture enables a new class of malware detectors. In addition, Exo-core
introduces programmable hardware accelerators to synthesize run-time program
traces into robust models of benign programs. The project will also
integrate research in hardware-software foundations of computer security
into a new two-semester research course for undergraduate students.